Mathematical Sciences: Conference on Differential Equations and Applications to Biology and Biology Dynamics; January 10-13, Claremont, CA

This award supports a conference on recent advances in selected parts of the theory of differential equations and their applications to biology and population dynamics. The conference will be held on January 10 - 13, 1990 in Claremont, California. The conference will be centered around advances in delay differential equations, functional differential equations, infinite dynamical systems, nonlinear differential and difference equations, epidemic models, ecological models, and physiological models. This conference will disseminate current information on research in mathematical biology, one of the important areas of applied mathematics.